SSC: "Summer Science Camp"

SSC-9450467 Cal State U Fresno Fnd Fresno, CA Shaw, Elden and Juanita Muniz-Torres "Summer Science Camp" The proposed Summer Science Camp (SSC) at California State University, (CSUF), will help to address the underrepresentation of ethnic minorities in science, engineering, and math careers. Specifically, the proposed program will serve 48 underrepresented minority middle school students per year for three years and will consist of three components: 1) A four-week summer residential program at CSUR; 2) Academic year follow-up; and 3) Project assessment and evaluation of both the summer program and academic year follow-up activities. This is the second submission of this proposal. Suggestions made by the reviewers for enhancing the proposal have been carefully considered and the proposal has been revised to reflect their comments. The summer program will provide students experience in the following areas: 1) Integrated coursework in algebra and geometry; 2) Engineering concepts and laboratory activities; 3) Computer literacy; 4) Computer aided design; 5) Refinement/development of oral and written communication skills; and 60 Career exploration. The successful implementation of integrated math, science, and laboratory experiences will be assured through the use of Mathematics Applications Curriculum for Science, Engineering and Technology (MACSET) activities. These unique hands-on experiences approach problem solving using practical applications found in everyday life, such as electrical appliances. The academic year follow-up activities will be directly linked with the proven CSUF Mathematics Engineering Science Achievement (MESA) Program. MESA is a statewide program that addresses the need to increase the number of underrepresented minorities pursuing college degrees in math, engineering and science. The CSUF MESA Program has several components already in place that will provide academic year support to summer program participants. These areas in clude: 1) In-school MESA clubs; 2) Saturday Academies; 3) Academic advising; 4) Career speakers, mentoring, and role models; and 5) Field trips to industry and universities. ***